Facilities for Freshwater Biology Center at the University of Alabama

This proposal requests funds to purchase equipment for the Freshwater Biological Facilities Center. Three major suites of equipment include: a scanning electron microscope with elemental analyzer, image analysis and multitask computer; an Intermap Analytic Photogrammetric Workstation; and an inductively coupled plasma emission spectrometer, ion chromatograph, and autoanalyzer. This instrumentation will enhance one of the major directions of interdisciplinary research, the development of linkages among stream ecology, geology, geochemistry, and geography, including geomorphology and hydrology. A major research goal is to improve current theories in stream ecology by incorporating the indirect and direct effects of watershed geology and geography on stream biology and chemistry and to utilize geology and geography as an organizing force within ecosystems. The University of Alabama is in an ideal location to achieve this owing to its proximity to four geological provinces in a climatically similar area and an extensive system of streams and rivers. This instrumentation will substantially move the institution closer toward its goal of focused breadth with cooperative efforts in areas of aquatic ecololgy and modern systematics as interfaced with geology, geochemistry, and geography.